Competitive Displacement: The Role of Reproductive Mode and Parasitism

A wide-scale biogeographic pattern shows that a house gecko, Hemidactylus frenatus, upon introduction to islands throughout the Pacific, replaces at least three other species. This trajectory has been replicated in at least three archipelagoes: Vanuatu, Hawaii and Fiji. Two of the species that are displaced are asexual parthenogens: Hemidactylus garnotii and Lepidodactylus lugubris. This research will determine the ecological mechanism responsible for the displacement and the role played by the mode of reproduction. Potential mechanisms fall into two categories: competition and "apparent competition". Under the heading of competition, the project will examine hypotheses concerning exploitation and interference competition with a combination of manipulative field experiments and captive experiments. In the "apparent competition" category, the potential role of parasites in the community dynamics will be examined by screening each species for gut, lung and blood parasites. Along those same lines, the clonal diversity of the asexual species will be both in Fiji and across the Pacific, with an immunological technique known as the mixed lymphocyte reaction (MLR). Distributional ranges of different clones will be mapped and associated with clonal differences in parasite burdens. Several models attributing ecological reasons for the maintenance of sexual reproduction hinge critically on the number of ecologically significant clones in the asexual species.